Mathematical Sciences: Geometry, Simulation and SimultaneousStatistical Inference

This research uses geometric insights to examine classical and fundamental statistical concepts and also to develop modern techniques for effective simulation. The work depends upon understanding basic statistical ideas in differential geometric and/or algebraic topologic terms.